Collaborative Research: Characterizing Magmatic System Dynamics and Structure with Fiber-Optic Sensing

Volcanic eruptions pose a serious natural hazard. More than 800 million people live near active volcanoes, and about 50 volcanoes erupt every year. Recent eruptions on Iceland's Reykjanes Peninsula forced thousands of people to leave the town of Grindavík and threatened nearby energy infrastructure. However, not all volcanic unrest leads to eruptions. Many times, magma rises underground and then stops at depth before reaching the surface. This makes eruption forecasting difficult. Missed warnings can put lives and infrastructures at risk, while false alarms can cause public concern and economic disruptions. The project develops a new way to monitor volcanoes in real time. This research team uses ordinary telecommunication fiber-optic cables as dense networks of ground deformation sensors. These cables can sense small deformations minute by minute to help track subsurface magma movements as it happens. The project will improve eruption forecasting, hazard response, and provide lessons that can be applied to active volcanoes in the United States.

This project characterizes the dynamics and structure of an active magmatic system using fiber-optic geodesy and seismology. A central goal is to determine and understand why some dike intrusions reach the surface and erupt, whereas others stall at depth. Conventional geodetic methods, such as GNSS and InSAR, provide important long-term deformation measurements but lack the temporal resolution to resolve the rapid evolution of dike intrusions at minute timescales. The project will address this gap by using low-frequency Distributed Acoustic Sensing (LFDAS) on existing telecommunication fiber-optic cables to measure quasi-static deformation and ground motion with dense spatial sampling and low noise. Along the Sundhnúkur crater row in Iceland, the project will combine LFDAS observations with conventional geodesy, seismic tomography, and seismic velocity changes (dv/v) to track magma accumulation, discharge, and stress perturbations from dike intrusions. Spanning timescales from minutes to months, these complementary measurements will constrain magma transport and dike emplacement in an active subaerial rift zone at unprecedented resolution and support a unified physical model of why some intrusions erupt while others stall. Building on years of instrumentation, prior analysis, and collaboration with the Iceland Meteorological Office, this project will establish DAS as a transformative tool for volcano monitoring and a model for studying and monitoring active volcanoes in the United States.